U.S.-Brazil Planning Visit to Prepare Proposal on PopulationBiology and Conservation of the Endemic Avifauna of Southeastern Brazil

9508664 Bleiweiss This U.S.-Brazil Program award will fund a planning visit by Dr. Robert E. Bleiweiss, of the University of Wisconsin, to go to Brazil to visit Drs. Edwin O. and Yoshika O. Willis in Sao Paulo, Brazil for the purpose of preparing a proposal to study the endemic and highly endangered Neotropical avifauna of southeastern Brazil. They will combine genetic and ecologic studies with the aim of understanding both its past evolution and future prospects. ***